RIMI: Problems in Error Flow Analysis

9550670 Morell The proposed research would focus on how to compute error flow information for a variety of programming models, with the dual goal of reducing the amount of information that needs to be collected to support its uses, as well as reducing the amount of time necessary to collect the error flow information. The objectives are (1) to develop algorithms that will significantly decrease the time necessary to analyze the error flow of sequential and parallel computer programs; (2) to implement and evaluate those algorithms on a parallel machine; and (3) to evaluate the efficacy of using error flow information in a variety of contexts. One graduate and two undergraduate students will participate in the proposed work. ***